ROW: An Integrated Petrographic, Chemical and Isotopic Study of the Diagenesis of Carbonate Sediments in the Deep Sea

This project involves an investigation of the nature and mechanisms of the diagenesis of carbonate sediment in cores recovered by the Deep Sea Drilling Project. The goal is to use petrographic, chemical, and isotopic techniques to determine the degree of modification by diagenesis on the isotopic signature of foraminifera from DSDP and ODP drill cores. Those isotopic signatures are used to reconstruct the paleoenvironmental conditions at the time of deposition at the site and may also include an overprint from the subsequent diagenesis. Recognition of samples with this overprint will allow paleoceanographers to reject samples which do not retain an environmental signal so that reconstructions of paleoclimates recorded in drill cores will not be in error.